Planning Grant for CPPR/NSF Center

The University of Puerto Rico plans to host a planning meeting to explore the potential to become a research site of the Purdue University/University of Connecticut I/UCRC for Pharmaceutical Processing.